Noncommutative Quasideterminants: Theory and Applications

9970586

This project will explore several fundamental questions in the area of noncommutative algebra: a general theory of quasideterminants, noncommutative flag and Plucker coordinates and their applications, noncommutative symmetric functions, continued fractions, applications to graph theory, and noncommutative integrable systems.

These areas find applications to automata theory and theoretical physics. Contemporary theoretical physics depends on algebraic systems that are not necessarily commutative like familar
algebraic systems.